Effects of Convection on Grain Structure Development in Alloy Solidification

ABSTRACT Cristoph Beckerman University of Iowa CTS-9501389 This work is a combined numerical analysis with experimental validation of the effects of convection on grain structure development and the distribution of alloying elements during dendritic solidification of metals. A numerical model will be developed and its predictions compared with high resolution time-dependent experimental measurements during the solidification of transparent and metallic alloys. The work will potentially point out improvements in casting technology.